Statistical Field Theories and Collective Phenomena

9805833 Kardar Complex phenomena often emerge from the collective interactions of simple underlying entities, such as atoms in a crystal, or neurons in the brain. Statistical mechanics provides powerful tools for quantifying collective phenomena, in both average behavior, and fluctuations around average. This research is aimed at understanding static and dynamic fluctuation phenomena in polymers, flux lines, surfaces, networks, and complex fluids. The chief analytical tool for extracting universal features of interacting systems is field theory. Equations governing the variation of a relevant field in space and time are constructed on the basis of various arguments (symmetry, locality, etc.) and then analyzed by well known techniques such as perturbation expansions and renormalization group. Numerical methods are also employed to simulate complex systems. Some less conventional approaches will also be explored in this research: (i) standard field theory can be regarded as a description of fluctuating linear objects (world-lines). A generalization to describe a class of fluctuating manifolds (with fixed connectivity) of arbitrary internal dimensions will be formulated. (ii) Path integral methods are introduced to study boundary effects introduced by extended objects immersed in a complex fluid. Even a simple system such as a moving mirror in vacuum modifies the quantum fluctuations of the electromagnetic field, leading to forces and radiation phenomena that can be calculated by this method. Specific topics of study include: (i) flux phases in type II superconductors: the modification of the phase diagram by the combined effects of thermal fluctuations, pinning by disorder, and destabilizing longitudinal currents. (ii) configurations of polymers and gels with random interactions and crosslinks. (iii) nonlinear patterns formed in biological systems (cortical maps or microtubule assemblies). (iv) description of nonequilibrium fluctuations in growing sys tems and drifting aggregates. (v) fluctuations of a single polyelectrolyte (charged polymer) and interactions between several extended charged objects. %%% Complex phenomena often emerge from the collective interactions of simple underlying entities, such as atoms in a crystal, or neurons in the brain. Statistical mechanics provides powerful tools for quantifying collective phenomena, in both average behavior, and fluctuations around average. This research is aimed at understanding static and dynamic fluctuation phenomena in polymers, flux lines, surfaces, networks, and complex fluids. Specific topics of study include: (i) flux phases in type II superconductors: the modification of the phase diagram by the combined effects of thermal fluctuations, pinning by disorder, and destabilizing longitudinal currents. (ii) configurations of polymers and gels with random interactions and crosslinks. (iii) nonlinear patterns formed in biological systems (cortical maps or microtubule assemblies). (iv) description of nonequilibrium fluctuations in growing systems and drifting aggregates. (v) fluctuations of a single polyelectrolyte (charged polymer) and interactions between several extended charged objects. ***